Undergraduate Research in Cellular Signaling

This award provides fund to continue a successful REU SITE at the Department of Pharmacology, University of South Alabama. The focus of the undergraduate research program is cellular signaling, e.g., how hormones, calcium, cyclic nucleotides, protein phosphorylation, and induction of specific intracellular proteins may influence cell function. Participating faculty have extramural research support and ongoing, active research programs. Compensation and access to student facilities (e.g. library and athletic facilities, housing and meal services) will be available for all program participants. Students will be provided a research experience in a laboratory selected by them on the basis of summary descriptions and discussion with the investigators. In addition, students will receive a formal review of the general area of cellular signalling via an organized weekly course. At the end of the summer, students will present their findings on Student Research Day. Students will be recruited from regional undergraduate institutions that do not themselves provide formal research experiences for undergraduates. Recruiting will be accomplished through science counselors, mail brochures and campus visits. This particular match of student and research experience will encourage talented students with little knowledge of the opportunities available in science to apply to Ph.D. programs and embark on careers in science and technology.